Theoretical Studies of van der Waals Molecules

The Theoretical and Computational Chemistry Program of the Chemistry Division is supporting work at the University of Delaware under the supervision of Professor Szalewicz to obtain state-of-the-art intermolecular potential energy surfaces for van der Waals molecules using his recently developed many-electron formulation of symmetry-adapted perturbation theory. Application will be made to systems for which experimental data are available but for which the interpretation may be controversial. %%% Hydrogen bond formation between molecules is one of the most important but least understood mechanisms for interaction between many molecules of biological importance or between such molecules and a solvent. This project attempts a high level examination of somewhat simpler systems to develop the basis for a more complete physical understanding of the interaction.